Equipment Grant: Equipment for the Development and Applications of Excimer Lasers

This equipment grant proposal is for modernization and expansion of data acquisition and analysis instruments used in the development and various applications of high-energy pulsed broadband tunable excimer lasers. Specifically, it requests funds for the purchase of a Tektronix 7912AD Transient Digitizer and a Spectralab 300 Quadrapole Mass Spectrometer. The 7912AD digitizer, which will replace a model R7912 digitizer that has been in use for the past decade, represents a significant advancement in technology and will greatly enhance the research program of the principal investigators. The quadrapole mass spectrometer would be used as a fundamental piece of equipment in a new project to study the use of excimer lasers in the processing of semiconductor devices.